Biotrain

Indian River Community College (IRCC) is partnering with industry, government, high schools, and universities to meet the workforce needs of southeast Florida's expanding research industry. The Florida Biotechnology Regional Access Initiative (Biotrain) project is (1) adapting instructional materials from existing programs to meet the region's need for research-oriented biotechnicians, (2) incorporating math-centered learning modules into existing high school and community college science curricula, (3) providing professional development in biotechnology to area high school teachers and community college faculty, and (4) increasing the number of underserved students in science, mathematics, and biotechnology disciplines.